Aquisition of a Wide-Bore 600 MHz NMR Spectrometer

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Utah will acquire a wide-bore 600 MHz NMR Spectrometer. This equipment will enable researchers to carry out studies on a) measurements of chemical shift tensors in natural products, ionic compounds, aerosols and soots, b) quadrupolar interactions in shift tensors and couplings in biologically important molecules, and c) spin exchange in polarized noble gases.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including drug development and advanced materials.